NSF Young Investigator Award

The proposal develops a theory of the relationship between government-binding syntax and the Kamp/Heim theory of the semantics of noun phrases, focusing on a variety of pronominal constructions in various languages, including Egyptian Arabic, Spanish and certain Native American languages.